Numerical Methods for Multiple Scale Problems in Wave Propagation: Efficient Approximation of Integral Operators in the Time Domain

Many of the main obstacles to the development of efficient and
reliable computational tools for simulating waves are rooted in the
multiple spatial scales which are universally present. The focus of
this project is the detailed study of select questions which are
relevant for overcoming these obstacles. A unifying feature of the
questions addressed is that all involve the efficient approximate
evaluation of integral operators in space and time. Although the
work, if successful, has the potential to impact numerous
scientific and engineering disciplines, the efforts will be directed
towards problems in aeroacoustics and electromagnetics.
Precisely, the following will be developed: (i) Accurate, efficient
and reliable computational domain truncation methods, allowing
the direct simulations to take place only in regions where the
medium is complex or where nonlinear effects are important; (ii)
Efficient time-stepping methods allowing the simple treatment of
concentrated regions of high resolution or geometric detail.

Wave propagation problems are of fundamental importance in
many areas of applied science and technology. They encompass a
wide range of physics (electromagnetics, fluid and solid
mechanics), but share essential mathematical properties. The
defining characteristic of a wave is its ability to travel long
distances relative to its basic dimension, the wavelength, carrying
detailed information about the medium through which it has
traveled. For this reason, waves are the primary method by which
we probe nature and communicate. A consequence of this
fundamental characteristic is that wave propagation problems
typically involve disparate spatial scales - from the geometrical
details of scatterers through a range of wavelengths to the
propagation distances. These multiple scales, in turn, lead to
difficulties in computational analysis. In particular, their uniform
resolution would lead to a prohibitive number of degrees of
freedom. Thus methods must be developed which can concentrate
computational resources only where they are needed, providing
the primary motivation for the problems we consider. In addition
to this analysis, the plan is to collaborate with researchers who are
building software for simulating jet noise, electromagnetic
scattering in complex structures, as well as general-purpose wave
propagation problems. Thus any positive developments from the
research can come into use as rapidly as possible.